Topics in Algebraic Geometry

9970295

This is a project in algebraic geometry. Ein proposes to study complexity questions on computational problems concerning geometric objects defined by a system of algebraic equations. In particular, he plans to study the complexity in finding the relations among the equations that define an irreducible variety. Ein also proposes to study geometric properties of linear systems on algebraic varieties.

Algebraic geometry is one of the oldest branches of mathematics. It studies geometric objects defined by algebraic equations. Because of their rich structure and fundamental importance, these geometric objects have been studied extensively by mathematicians. In recent years, mathematicians have found important applications of algebraic geometry to mathematical physics, coding theory, compuatational science, number theory, and topology.